Research in Elementary Particle Physics

9515490 Lubatti In this proposal Professor Lubatti requests support for participation of his group at the University of Washington to participate in R&D leading to the eventual construction of a muon detector system for ATLAS, a detector proposed for the Large Hadron Collider facility at CERN. ***